NSF Student Travel Grant for 2018 International Symposium on Distributed Computing (DISC)

This award will support student attendance at the 2018 International Symposium on Distributed Computing (DISC), in New Orleans, LA, October 15 to 19, 2018. Distributed computing is ubiquitous, with many applications in the Internet and in small-scale devices. DISC gives an opportunity to expose students to the fundamental concepts behind the algorithms that drive distributed computing applications.

This award will provide partial support to approximately 10 students to attend this top conference in the area of distributed computing. Efforts will be made to support students from under-represented groups and geographic diversity among students will be taken into account. The award will encourage and facilitate the student participation in this top-tier computer science conference. It will contribute towards attracting more under-represented groups to computer science research giving students an opportunity to engage in the important technical, professional, and social exchanges that DISC fosters.